Solar Wind Slow Shocks

9310444 Whang This research is to study the transition of slow shocks in the solar wind to fast shocks in interplanetary space and the non- planar magnetic reconnection associated with 3D slow shocks. Large disturbance in the solar wind propagate as magnetohydrodynamic (MHD) shocks through interplanetary space. Near the corona, these shocks can be slow shocks, but most likely they appear as fast shocks by the time they reach Earth. This study is to carry out simulations in the physical space to verify the transition of slow shocks to fast shocks. The study uses a compressible model for non-planar reconnection associated with conical slow shocks. The primary objective is to understand the reconnection of non-planar field lines associated with curved shock surfaces. The project will systematically study solutions under different combinations of controlling parameters to identify the quantitative relationships. ***